Thermodynamics of Nanostructures and Buried Silicide Interfaces using Scanning Nanocalorimetry

9726458 Allen This project aims to investigate a variety of basic materials issues in thin films and at interfaces, e.g., coalescence during initial stages of film growth, silicide formation with restricted dimensions, and dimensional stability and reflow of aluminum nanostructures through the use of a recently developed nanocalorimetry technique. The proposed research seeks new insights into effects of particle/cluster/island size and of surfaces in stability and kinetics of materials, and to reveal new information about behavior of materials at nanometer length scales. %%% The project addresses basic research issues in a topical area of materials science having high technological relevance. The research will contribute basic materials science knowledge at a fundamental level to important aspects of electronic/photonic materials. The fundamental knowledge and understanding gained from the research is expected to contribute to improving the performance and stability of advanced devices and circuits by providing a fundamental understanding and a basis for designing and producing improved materials, and materials combinations. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area. ***